CAREER: Fundamental Performance Limits of Large-Scale Wireless Sensor Networks

In recent times much has been said about how, once deployed, networks
of devices with wireless communication capabilities will affect the way
we work, learn, interact, organize, get entertained, fight wars, and
recover from disasters. This interest in wireless networks has led to
a fair amount of research activity in the areas of mobile and ad-hoc
networking, addressing both systems and theory issues. However, not
much research work has been done on fundamental information theoretic
concepts related to wireless *sensor* networks, i.e., networks of tiny,
low power, unreliable devices equipped with very limited sensing and
communication capabilities, and embedded in the environment. This
project is primarily about the study of fundamental performance limits
for large-scale wireless sensor networks. Specifically, there are
three problems, deeply intertwined with each other, and very relevant
in practice, on which we concentrate our efforts:

- Source Coding problems, dealing with the design and performance
analysis of codes and signal processing algorithms for the random fields
generated by sensor nodes.

- Routing problems, dealing with design and performance analysis of
protocols and signal processing algorithms for moving sensor data *within*
the network.

- Reachback Communication problems, dealing with the design and
performance analysis of codes and signal processing algorithms for moving
sensor data *out* of the network.

The solution to problems of source coding, routing, and reachback
communication in sensor networks requires a "marriage" of networking
and communication theoretic concepts. This presents an interesting
opportunity for innovation in education, since networking is typically
regarded as a "pure CS" topic, whereas communication theory is typically
regarded as a "pure EE" topic. All of my educational and outreach
activities (undergraduate and graduate course development, lab development,
undergraduate textbook development, service to community) are designed
around the general goal of providing a solid theoretical basis to our
students in networking and communications, as well as the more specific
goal of highlighting the interplay between these concepts in the context
of wireless sensor networks.